A Seafloor Geodesy Experiment at the Discovery Transform Fault

McGuire
Abstract
Aseismic fault slip is one of the most important processes in plate tectonics. Oceanic transforms are advantageous for understanding aseismic fault slip because about 90% of the plate motion is aseismic and only about 10% results in earthquakes. This project will deploy as acoustic ranging system across the Discovery transform fault for one year that will be contemporaneous with a deployment of ocean bottom seismometers. The combination of this instrumentation, Discovery's fast slip rate, and the mixture of seismic and aseismic slip on the Discovery fault will yield constraints on the portions of the fault that fail seismically and aseismically. Inferences about the seismic and aseismic regions of the fault will be combined with both passive and active source seismic imaging results that will relate the behavior of the transform to rock mechanics knowledge about the deformation properties of basalt, gabbro, serpentine, and peridotite.